Accelerated Coalescence in Phase Separation of Partially Miscible Solvents

In a research effort presently funded by NSF a novel liquid- liquid extraction processes is being investigated, which capitalizes on the properties of partially miscible solvents with a critical point of solubility. In this process the critical mixture, together with the solute to be separated, is first heated above its critical temperature, where it forms a uniform solution, and then cooled to the thermodynamically unstable region below the miscibility curve where the solvents separate into who coexisting phases. This new process was shown not only to be feasible, but also to extremely advantageous, above all when dealing with systems that tend to emulsify or form stable dispersions. For example, it can handle a fermentation broth without using a centrifuge, which is a technical breakthrough with far-reaching implications in bioseparation. The high efficiency of the new separation process is due to a phenomenon that has never been reported in the literature: when phases separation after quenching below the coexistence curve, coalescence is not only greatly accelerated, but it is much less sensitive to impurities of both solvents and solutes than during isothermal operations. The coalescence times of a fermentation broth can be reduced by three orders of magnitude by using the new separation technique in place of the traditional isothermal process, in which cause the formation of stable dispersions and emulsions. The proposed research intends to investigate this phenomenon of accelerated coalescence in detail, using light-scattering and photographic techniques, accompanied by an attempt to formulate a quantitative theoretical explanation. The results of this study will be of both scientific and technical interest in understanding the general phenomenon of hindered coalescence in solvent extraction and will shed some light on the phase separation of partially miscible mixtures due to cooling or heating across the coexistence curve.